Connection to THEnet Regional Network

Saint Edward's University is establishing a connection to NSFNET via a 56,000 bits per second line through the Texas Higher Education Network (THEnet). The connection enhances the school's undergraduate science education program by allowing the students to communicate and collaborate with the national scientific and educational community, and to access network resources. This award funds part of the costs for two years.***